Greenland Ice Sheet Accumulation Variability

This award will be used to compile and analyze a series of annually dated ice core records and to produce a unique data set capable of yielding sub-annual snow accumulation records from Greenland. The data set will include multi-century and multi-decadal records from a variety of sites in Greenland as well as records from Danish archives and other historical coring efforts.

Following database development, the researchers will employ multiple statistical and time series analyses techniques to investigate spatial and temporal relationships in the long-term variability of annual (and subannual) accumulation from individual sites across the Greenland Ice Sheet.